Mathematical Sciences: Representation Theory of Reductive Lie Groups

The principal investigator plans to work on problems in mathematical analysis concerning the representation theory of Lie groups. A suitable example of the latter is the group of rotations of a sphere. Groups like this are important because they occur in many areas of mathematics ( e.g. geometry, differential equations, algebraic number theory, mathematical physics ) as groups of symmetries. Representation theory allows one to take advantage of symmetries in solving problems. A portion of the research will focus on a closer investigation of the Euler characteristic appearing in the Osborne character formula, aiming to describe the individual terms in this characteristic. The structure and properties of induced representations of real reductive Lie groups will also be investigated.